1988 Gordon Research Conference on Chemistry of Electronic Materials Ventura, CA, March 7-11, 1988

A Gordon Conference has been organized with the theme "Chemistry of Electronic Materials", and it will be held in Ventura, California, March 7-11, 1988. The goal is to bring together industrial and academic scientists involved in various aspects of electronic materials science and processing to discuss the fundamental issues in chemistry and engineering which are central to the future development of this important area of technology. In this third Conference on the "Chemistry of Electronic Materials", the emphasis of the first two meetings on silicon-based materials is somewhat reduced, with increased attention devoted to ceramic and polymer materials, chemistry, and process technology. The sessions highlight developments in superconductive oxides, analysis techniques, novel conductor materials, polymer resist chemistry, chemical precursors for film deposition, formation methods for materials, and interfacial chemistry. Major involvement of the academic chemistry and chemical engineering community in the Conference as speakers, discussion leaders and invited participants is anticipated. In this way, academic interest in the topic can be stimulated and the conference can serve as a continuing focal point for the scientific issues that must be addressed to maintain the vitality of this strategically important technology.